ScienceGate II: A Conference for Developers of Secondary School Science Curriculum, Colorado Springs, Colorado, January 23-25, 1998

9730065 Dougherty ScienceGate II is the second in a series of conferences of developers of comprehensive high school science curricula to explore the connections between disciplinary curricula. In the previous conference it was discovered that there was a common vision about the nature of science and how science is taught. This conference continues that dialogue and explores other issues of mutual concern including evaluation and dissemination.